Upgrade of the Alliance for Computational Earth Science (ACES) high performance computing facility

0948438
Hager

This grants supports an upgrade of the computer facilities now maintained by the Alliance for Computational Earth Science (ACES) at MIT. ACES manages cluster computing resources for three academic departments spanning two schools at MIT. Approximately 1/3 of the processors are in the geophysics subcluster, ACES-GEO. ACES-GEO Pis will purchase a pre-assembled cluster machine from THINKMATE which would include a controlling node, at least 11 compute nodes and a switch unit. Node configurations will include multi Quad-core Intel CPU, massive RAM and storage capacities. The new cluster will support computationally intensive PI and student research involving geodynamical modeling of Earth and Planetary interiors, geodetic data analysis, cryosphere dynamical modeling, seismic imaging and interpretation, land form evolution, and inversion of remnant magnetization. The cluster will support the computational needs of four assistant professors, two of whom are women.